TEACHING COMPUTER NETWORKS THROUGH SIMULATION EXPERIMENTS AND ANIMATION LIBRARY (THE NET-SEAL PROJECT)

Computer Science (31)
Intellectual Merit: The Teaching Computer Networks through Simulation Experiments and Animation Library (NET-SEAL) project is creating curriculum materials which are
enabling undergraduates to experiment with computer networks. Using NET-SEAL,
students are creating network simulations which use animation to visualize the
dynamics of the network protocols. Through a collaboration with a two-year
college, the project is addressing the needs of two-year college curriculums by
expanding the simulation support to include popular commercial networking
components. NET-SEAL engages students with dynamic animations and provides an
experimental environment which promotes learning-by-doing.

Broader Impact: NET-SEAL is being distributed by a commercial publisher as
a supplement to a widely used undergraduate networking textbook.